Search for Neutrinoless Double Beta Decay with Nemo-3 and Super-Nemo Experiments

Neutrinos are fascinating elementary particles and understanding their characteristics may explain why there is more matter than anti-matter in the universe. Neutrinos have very small mass and zero electric charge so they could be their own anti-particle, and that is their key to unlocking the matter vs anti-matter content of the universe. This award focuses on determining if neutrinos are their own anti-particles using the NEMO-3 and SuperNEMO experiments developed by the Neutrino Ettore Majorana Observatory (NEMO) collaboration. A prototype of the SuperNEMO design will be commissioned soon, and this award will support the research of a graduate student who will earn his dissertation using the newly commissioned equipment. The research will include background analysis, energy resolution improvements, and a search for neutrinoless double beta decay. The student will develop highly technical skills that will allow him to contribute to STEM fields.

The NEMO-3 experiment collected data by employing about 10 kg of thin isotopic foils surrounded by a wire drift chamber for 3D particle tracking in a 25 G magnetic field and scintillator blocks to measure the energy of electrons. This unique technique provides several observables for each registered event, offering a powerful means to identify double beta decays and to reject background processes. SuperNEMO will further exploit the NEMO-3 technique. The goal of SuperNEMO is to use 100 kg of Se-82 or some other isotope to probe the half-life for neutrinoless double beta decay at the level of 1x10^(26) years in a 500kg*year exposure, corresponding to the effective neutrino mass in the 50 meV range. The research supported by this award will include the commissioning of the first SuperNEMO module.